Modeling Deformation Induced Texture in Titanium Using Analytic Solutions for Single Crystal Response

A method for modeling large deformation behavior of alloys comprised of low symmetry polycrystalline metals will be developed. Such polycrystals involve single crystals with fewer than five active slip systems. Of particular importance are the alpha phases of titanium alloys. Because of the inherent kinematic constraint, numerical simulations of polycrystal behavior based on single crystal slip are computationally intensive. On the other hand, the restricted number of slip systems permit an analytical treatment of the rate insensitive behavior of both the single crystal and the polycrystal. This analysis will be carried out for HCP crystals with emphasis on titanium. The analytical results will be used to replace, in whole or in part, the numerical solution of nonlinear equations that describe responses of individual grains. The polycrystalline properties necessary for finite element analysis of forming processes thus may be obtained more directly from the average grain behavior. This should make the determination of the evolution of the polycrystalline anisotropy far more accurate and efficient. The predicted development of anisotropy will be compared with anisotropy observed in samples of titanium deformed in the laboratory under realistic processing conditions.